Riemannian Submersions and Positive Curvature

Abstract

Proposal: DMS-9803258
Principal Investigator: Frederick Wilhelm

Frederick Wilhelm proposes to work on three problems. The first is a
program for creating new examples of Riemannian metrics that have lots
of positive curvatures. The metrics are on certain fiber bundles.
The program seems particularly likely to succeed for three sphere
bundles over the four sphere. Second he will work on proving his new
conjecture---that the dimension of the image of a Riemannian
submersion of a complete, positively curved manifold is strictly
greater than half of the dimension of the domain. Third he will try to
complete the classification of Riemannian submersions of round
spheres.

The three problems all address the general question of how does the
curvature of a space effect its geometry and topology? Roughly
speaking, curvature is what determines the trigonometry of a space.
For example one can prove that the surface of the earth is curved with
out looking at it from outer space. To do this have two people start
at the north pole and travel in any two directions that are
perpendicular to each other. If they travel at the same speed, they
will eventually meet again at the south pole. On the other hand, if
the same experiment were conducted on a flat world, the two people
would never meet. They would keep getting further apart, even if they
never reached the "edge" of the world. The main justification for
studying this general question is that it seems intrinsically
beautiful, intriguing, and natural. It has a long history, that dates
back to the 1930's work of H. Hopf, Morse, Schoenberg, Meyers, and
Synge.